FASEB 1994 Conference on Developmental Biology

Financial support is requested for a meeting covering various aspects of developmental biology. The specific objectives are to assemble a group of scientists with broad expertise in modern molecular analysis of development, have a series of 54 talks on up-to-date research, and have about 100 other attendees present posters describing their research. The meeting will be held on the University of California - Santa Cruze campus from June 25 through June 30, 1994.